Conference Entitled: Biological Actions of Extracellular ATPHeld on November 27-29, 1989, in Philadelphia, PA.

This proposal seeks support for a conference on The Biological Role of Extracellular ATP to be sponsored by the New York Academy of Sciences. Effects of extracellular ATP on the in vivo and in vitro functions of a variety of tisssue and organ systems have been known for over 20 years. Modification of the contractile responses of cardiac muscle and vascular and visceral smooth muscle in the presence of exogenous ATP have been particularly well characterized. More recently, extracellular ATP at nanomolar to micromolar concentrations has been shown to trigger, modulate, or inhibit physiological responses in a much broader range of non-contractile tissue and cell types including exocrine and endocrine secretory tissues, vascular endothelium, epithelial cell types, phagocytic cells, hepatocytes, and certain nerve/neuronal preparations. Furthermore, studies using state- of-the-art methods for monitoring receptor-mediated signalling events in single cells or in highly homogeneous cultured cell systems have demonstrated that extracellular ATP can trigger activation of several well-defined transmembrane signalling effector systems. Since ATP is stored in, and can be released from, a variety of neuronal and non-neuronal secretory granules, these past and recent observations strongly suggest that ATP may be a physiologically significant inter-cellular signalling agent which exerts its functional effects via interaction with specific cell surface receptors. Increasingly, scientists investigating these various aspects of the biological role of extracellular ATP represent a much wider range of disciplines (cellular physiology, neurobiology, endocrinology, and immunology) than the smooth muscle pharmacology which previously dominated the field. Since previous conferences in this general area have been focused on the effects of adenosine and ATP on smooth muscle or cardiovascular biology, many of the recent studies on ATP-induced actions in other tissue and cell types have never been discussed in a focused conference setting. The proposed conference will provide such a setting. There will be sessions concerned with the following topics: 1) the effects of ATP on the integrated, specialized functions of various excitable and non-excitable cell types, 2) ATP chemistry and the classification of ATP effects and the receptors mediating these effects, 3) the coupling of ATP receptors to specific transmembrane signalling mechanisms, 4) the sources of extracellular ATP, and 5) the metabolism of extracellular ATP by ecto-enzymes. This conference on the biological role of extracellular ATP will provide a forum for the multi-disciplinary discussion of the increasing number of studies which indicate that extracellular ATP may have important inter-cellular signalling and regulatory roles in diverse biological systems.